Symposium on Chemical Reactor Stability and Dynamics - Miami Beach, Florida, April 28 - May 3, l985

This symposium will bring together the leading international authorities on the subject of chemical reactor kinetics. The symposium will be a part of the Annual National Meeting of the American Chemical Society. Fundamental research into new reactor phenomena will be emphasized.